Acquisition of a CHN Elemental Analyzer, Particle Size Analyzer, and KappaBridge to investigate the origin of rhythmites in the Finger Lakes of New York

0420576
Curtin

Funds from this Major Research Instrumentation (MRI) grant will be used to acquire an automated elemental analyzer; an automated electronic particle size analyzer; and a spinner KappaBridge for the Geoscience Department and Environmental Studies Program at Hobart & William Smith Colleges (HWS). These instruments will be used primarily to investigate evidence of climate and environmental change archived in Holocene laminated sediments in the Finger Lakes of New York State. High-resolution paleoclimate and paleoenvironmental research on cm-scale laminations will be made possible using these instruments because they are computer-controlled, automated, and can use small sample volumes for analysis while maintaining a high level of precision, accuracy, and sample throughput. Specifically, the elemental analyzer will be used to characterize the total organic matter and differentiate the source of organic matter to the lakes. The particle size analyzer and KappaBridge will be used in concert to infer the dynamics of sediment transport. These instruments will support a continuing project that strives to develop a model to explain how Holocene climate change impacted the dynamics of lake circulation and the overall hydrological balance in the Finger Lakes during the Holocene. These instruments will also help provide a well-equipped learning environment for undergraduate students at HWS that revolves around lake and environmental research.

***